MGR Honorable Mention: Miguel A. Quinones

This special award will give Ph.D. student Miguel A. Quinones additional flexibility in pursuing his graduate studies and research initiation in social psychology. This award will strengthen minority participation in research in this area.